Midwest Verification Day 2015

This award will support student travel to the seventh Midwest Verification Day (MVD), to be held at the University of Illinois at Urbana-Champaign in September 2015. MVD is an informal regional workshop with the goal of cultivating a regional research network in verification and formal methods. The funds will help support U.S. based students, focusing on Ph.D. students at an advanced stage in their program and students who would otherwise not be able to attend MVD. The broader impacts include training the next generation of researchers in this important research area. Higher priority will be assigned to students giving presentations and a strong emphasis will be put on supporting students from underrepresented groups.